Time-Resolved Spectroscopic Studies of Hydrogen-Bonded Molecular Complexes

Professor David Waldeck, University of Pittsburgh, is supported by a grant from the Theoretical and Computational Chemistry Program to continue his research involving time-resolved spectroscopic studies of hydrogen-bonded molecular complexes. Waldeck's prior work involved measurements of rotational diffusion using optically heterodyned polarization spectroscopy and fluorescence depolarization. The current project extends this work to obtain a deeper understanding the dynamics of hydrogen bonded complexes and intermolecular bonding. He will use the same experimental techniques, polarization spectroscopy and fluorescence depolarization, to study the mobility and flexibility of hydrogen bonded guest molecules as a function of binding enthalpy and topology. Experimental studies will be conducted on a variety of host/guest systems in unassociated but dipolar organic solvents such as trichloro methane and dimethyl sulphoxide, and comparisons made with theory. The principal goal of the research is to understand how the position and strength of hydrogen bonds determine the flexibility of intermolecular hydrogen bonded complexes, and to gain a deeper understanding of the dynamics of such complexes. These studies are important because they should elucidate aspects of dynamics which are important in chemistry and biology. In biology, the flexibility of a guest molecule in a host is likely to be of critical importance for the binding of biological molecules and for enzyme activity. In chemistry, the frictional coupling which occurs between a molecular moiety and a solvent when the moiety is moving in a potential is at the core of understanding the dynamical influence of a solvent on a chemical reaction. The studies being undertaken by Waldeck will have a direct bearing on these larger and more complex issues.